Special varieties in algebraic dynamics

This project investigates the mathematics of dynamical systems defined by repeatedly applying algebraic rules. Such systems arise throughout science and technology, where complex behavior emerges from simple iterative processes. A central challenge is to understand when a dynamical system exhibits hidden structure rather than generic chaotic behavior. The project studies special geometric configurations that govern stability, rigidity, and long-term behavior in broad classes of dynamical systems. By developing new mathematical tools to identify and characterize these special structures, the research advances fundamental knowledge at the interface of geometry, number theory, and dynamical systems. These concepts form part of the mathematical foundation underlying many modern computational and data-driven technologies, including areas of growing interest in artificial intelligence. The project supports the research of undergraduate and graduate students, and it promotes public understanding of mathematics through outreach, lectures, and educational programs.

The investigator studies dynamical systems arising from endomorphisms of algebraic varieties and their families. The central goal is to establish a general theory describing the relationship between invariant subvarieties and bifurcation phenomena. The research is organized around a unifying conjectural framework that encompasses several major open problems in arithmetic and algebraic dynamics, including dynamical analogs of the Manin-Mumford and Andre-Oort conjectures. Specific objectives include: (1) characterizing special subvarieties in families of dynamical systems; (2) developing the theory of generalized bifurcation currents and determining criteria for positivity; (3) obtaining effective and uniform bounds governing special loci and the geometry of periodic points; and (4) extending these methods to non-archimedean and p-adic settings. The project combines techniques from complex dynamics, arithmetic geometry, equidistribution theory, and non-archimedean analysis. It also develops computational and algorithmic approaches for explicit examples and quantitative bounds. Expected outcomes include new structural results on special subvarieties, new stability and rigidity theorems, effective uniformity results, and advances toward a general theory connecting geometry, arithmetic, and dynamics in algebraic families.